Purchase of a UV-VIS-NIR Spectrometer

A high quality Utraviolet-Visible-Near Infrared Spectrometer is a vital piece of equipment for measuring electronic spectra of complexes and simple compounds. The spectra provide insight into the nature and extent of the electronic interactions involved. The spectrometer is used for kinetic studies and studies of surfaces. This award from the Chemistry Instrumentation Program to the Department of Chemistry at the University of Wyoming will help acquire an UV-VIS-NIR Spectrometer with an Integrating Sphere. The acquisition will enhance the ability of the department to educate undergraduate students and will enhance chemical research in the following areas: 1. Di-u-oxodimanganese Complexes 2. Solid-Surface Luminescence and Spectroscopy in Studying Chromatographic Mechanisms 3. A Laser-Based Kinetic Study into the Nature of the Charge-Transfer Process Associated with the Photoreduction of Benzophenone and the Physical Quenching of Singlet Molecular Oxygen by Hydrazines 4. Ultrasensitive Detection Through Surface Enhanced Raman Spectroscopy 5. "Corked" Vesicles Derived from Ketal-Based Cleavable Surfactants 6. Intramolecular Association in Redox Polymers. The "n=3" Rule in Polymer Electrochemistry